High Resolution Sequence and Event Stratigraphy of Mid Silurian Strata in Eastern Laurentia and Avalonia

Increasing evidence indicates that the Silurian, long viewed as "quiescent", was actually a very dynamic
period from the standpoint of tectonics and ecological evolutionary events. However, correlations of strata
and events, particularly during the mid-Silurian, remain ambiguous even in well-studied areas. This project
proposes to establish a regional stratigraphic framework, paleogeography, and sea level history for the
Niagaran (late Llandovery-Wenlock) in eastern North America (Laurentia), based on coupled K-bentonites,
sequence stratigraphic, and biostratigraphic criteria. We will also evaluate the potential for international
correlation by comparisons of newly discovered K-bentonite beds in North America and Avalonia. This
research will: a) yield more precise correlation and bracketing of this interval in eastern North America,
with emphasis on the Cincinnati Arch region; b) provide a test and extension of previous sequence
stratigraphic interpretations; c) help to document the presence of and potentially, the position of volcanic
activity and basin dynamics during early phases of the Salinic Orogeny (late Telychian-Wenlock); d)
provide zircon-based radiometric dating of parts of the Niagaran Series (North American) and
Llandovery/Wenlock Series (Britain); and e) explore the possibility of matching K-bentonite horizons or
intervals of genetically similar ash beds, between Laurentia and Avalonia. High-resolution correlations will
permit discrimination of regional sea level and tectonic history of late Llandovery-Wenlock strata within
eastern Laurentia and provide tests for apparent synchroneity of various physical and biotic events
regionally and globally.
The specific benefits expected to emerge from this study can be summarized as follows:
1) If K-bentonites and other event beds can be identified and traced within each paleogeographic area, as
seems definite, this will permit a) high resolution stratigraphic correlation of late Llandovery-Wenlock strata
within both eastern Laurentia and Avalonia; b) in turn, this will facilitate detailed linkage of stable platform
areas with tectonically active basins; c) in both cases, but particularly in eastern North America (for which
refined graptolite biostratigraphy is impossible). Such correlations will then permit tests for apparent
synchroneity of various physical and biotic events. For example, similarities of relative sea level curves
reconstructed from sequence stratigraphy suggest eustatic controls (Brett et al., 1990, 1998; Johnson et al.,
1991); K-bentonites may provide independent high-resolution stratigraphic controls that will enable a
definitive test of this inference. Bentonite correlations can also test for synchroneity of tectonic events, such
as pulses of subsidence in the foreland and episodic uplift of the Findlay/Algonquin arch, and precursors of
the Cincinnati arch (Ettensohn and Brett, 1998). Finally, refined correlations may provide a test of the
coeval vs. diachronous nature of bioevents, such as the turnover pulses that separate intervals of relatively
stable faunas (or ecological-evolutionary subunits) in the Appalachian Basin (Brett and Baird, 1995), and
elsewhere.
2) At the very least, if synchroneity of stratigraphic sequences within each area can be established,
and those patterns appear similar, then it will strengthen the case of allocyclic and probably eustatic, as
opposed to strictly local autocyclic controls of facies fluctuations. Furthermore, if clusters of K-bentonites
(as opposed to single fingerprinted beds) coincide approximately (within conodont biostratigraphic
resolution) in Laurentia and Avalonia, this may corroborate models of shared tectonic histories, consistent
with other tectonic evidence (Torsvik et al. 1996). Patterns of K-bentonite dispersal and thickness in each
paleocontinent will aid in location of the volcanic source terranes and reconstruction of paleowind directions
and paleogeography.
3) Finally, the establishment of trans-Iapetus K-bentonite and sequence stratigraphic correlations: a)
permit the first really detailed correlation of the Wenlock stratotype with the classic Niagaran provincial
series of eastern North America; b) provide a test for global eustatic sea level curve recently proposed by
Johnson and others (1991); c) provide a test for synchroneity of possible global bioevents.
This project will provide a post-doctoral position for Michael DeSantis and give him further
research experience in an area related to, but distinct from his doctoral studies. In addition, we intend to
employ one or more undergraduates. These students will benefit from the training in field and laboratory
research and may develop "capstone" projects resulting in senior theses and/or published abstracts and
papers.